Wavelet-based Modeling and Image Analysis

ABSTRACT :

The Department of Mathematics and Computer Science at the University of Missouri-St. Louis will purchase computer equipment and software as follows:

(a) one SUN Enterprise 420R Server with 4 SPARC II processors
at 450 MHz (or later model), 4 GB of memory, and 36.4 GB harddisk

(b) one Hewlett Packard Visualize Workstation X-Class with
two Pentium III processors at 866 MHz (or later model)
with 1GB memory, 36.4 GB harddisk and graphics subsystem fx10+,

(c) High Performance Computing (HPC) tools and C++ Visual Program Development for Solaris 8.0; Matlab for Solaris and Windows NT; Unigraphics CAD and 3D-modeling software for Solaris and Windows NT; AMBER software for Solaris; PC Netlink for Solaris,

(d) peripheral devices: one printer for Workgroups HP 8000 DN,
one Digital Still Camera, one Color Scanner.

This equipment will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular:

(1) Face recognition using spline-based wavelet-frame analysis

(2) Mathematical modeling of cellular dynamic structure

(3) Tight frames of rational splines and applications
to CAD/CAM and computer graphics

(4) Wavelet X-ray computed tomography